Upgrade of 500 MHz NMR Facility

This award from the Chemistry Research Instrumentation and Facilities Program and the Instrumentation and Instrument Development Program (IID) will assist the Department of Chemistry at the University of Utah in the purchase of an upgrade of its existing 500 MHZ NMR. This equipment upgrade will enhance research in a number of areas including the following: Conformational Properties of Phorphorus-Containing Six-Membered Rings Molecular Structure from Automated Interpretation of INADEQUATE Spectra Segmental Motion in Peptides and Proteins Mechanistic Studies of Enzymes in the Isoprene Biosynthetic Pathway Structural Studies of Peptide Neurotoxins from Fish-Hunting Cone Snails Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, charcterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.